A Proposal for the Renewal of Engineering Education and Its Infrastructure

The coalition includes seven institutions (the City College of New York, Howard University, Massachusetts Institute of Technology, University of Maryland, Morgan State University, Pennsylvania State University, and University of Washington) and has a twofold gold: 1) to increase the quality of U.S. engineering education and to increase the number of engineering graduates at all levels, especially among women and underrepresented minorities, 2) to increase the effectiveness of engineering education, fostering a curriculum renewal that prepares students for life-long productive careers. Central to the realization of these goals is the integration, throughout the curriculum, of design, broadly conceived -- that is, of engineering design in all its diversity, from technical to social dimensions -- and the development of programs to attract and retain women and underrepresented minorities in engineering. The grantee provides funds for this project that are more than an equal match for the NSF award.